Thermodynamic Optimization of Power Systems with Fluid Flow Irreversibilities

ABSTRACT 9521722 This proposal is to extend thermodynamic optimization of components and power systems, particularly for turbine engine, using finite time thermodynamics; optimization will be carried out by adjusting pressure loss distributions and flow rate to maximize power output. The results could lead to improved engineering design of both components and systems.